International Workshop on Seismic Stability of Tailings Dams

This action is to provide partial support for an International Workshop on Seismic
Stability of Tailings Dams, being jointly organized and sponsored by the National
Science Foundation, the Office of Surface Mining (a bureau of the U.S. Department of
the Interior), and the Mine Safety and Health Administration (an agency within the
Department of Labor). Tailings dams are the residue of the milling process used to
extract materials of interest from mined ores. They are characterized by hydraulically
placed fills held in place by an embankment. Failure of tailings dams due to earthquakes
has occurred many times in the past in several Pacific Rim earthquake-prone countries,
causing significant loss of property and human lives, as well as severe environmental
problems.
According to the most current data supplied to the National Inventory of Dams, there are
860 coal-mining related dams in the United States. Of these, 232 are considered to have
a high hazard-potential by FEMA's hazard rating system, indicating that failure would be
reasonably likely to result in loss of life and significant property damage. The vast
majority of these high-hazard-potential dams are coal refuse tailings dams located in the
Appalachian Coal Field. A few are over 200 m (600 feet) high. Failure of such a
structure due to earthquake loading would be catastrophic. Even though considerable
progress has been made in seismic design and analysis of earth dams, little research has
been conducted on the seismic stability of tailings dams. Past research has shown that
coal waste materials have mechanical properties quite different from that of most soils.
The structure and construction method of tailings dams are very different from
conventional earth dams. Therefore, there is an urgent need for research to investigate
the stability of tailings dams under earthquake loading, and to develop seismic design
procedures suitable for this unique type of structure.
This workshop will bring together US and international experts to discuss the critical
issues involved. The objectives are: 1) to summarize the current state-of-the-art, and the
state-of-the-practice in the design and seismic analyses of tailings dams; 2) to identify
research needs; 3) to facilitate communication and collaboration between researchers,
government regulatory agencies, and practicing engineers.
Within the limits of the required expertise, the organizers will include underrepresented
minorities. The workshop will be hosted by the Department of Civil Engineering, Case
Western Reserve University in Cleveland, Ohio on 22-23 May 2003. The workshop
proceedings will be posted online on the workshop web site and the web sites of the
government regulatory agencies.